Collaborative Research: Late Quaternary Climate of Northeast Asia: Temporal and Spatial Variability

Abstract ATM-9810177 Anderson, Patricia M. University of Washington Title: Late Quaternary Climate of Northeast Asia: Temporal and Spatial Variability This award supports a project designed to improve the understanding of late Quaternary climatic systems of East Asia by documenting spatial and temporal variations in climates of the last 18,000 radiocarbon years for NE Asia, describing probable millennial and centennial scale mechanisms that can account for the observed paleoclimatic changes, and comparing results from NE Asia to other regions (e.g., SE Asia, NW North America, North Atlantic) to obtain a more holistic view of the inter-relationships of regional climatic systems. Overall research goals will be accomplished by: 1) reconstructing past climates through the collection and analysis of modern and ancient botanical, geochemical, and diatom data preserved in lake sediments; 2) developing high quality chronologies using improved radiocarbon techniques; 3) examining modern synoptic climatic patterns, general circulation model simulations, and conceptual frameworks to identify possible causes of climatic change; 4) comparing the proxy- and model-based paleoclimatic interpretations to assess the most likely mechanisms behind the observed climatic histories; and 5) exploring possible hemispheric scale linkages associated with Milankovitch and sub- Milankovitch scale event.